Equipment for Unidata-Supported Teaching and Research in Meteorology

Abstract ATM-9528051 Allen J. Riordan, Steven Koch, and Gerald Watson North Carolina State University UNIDATA: Equipment for UNIDATA-Supported Teaching and Research in Meteorology. Funds will provide the necessary hardware that shall permit North Carolina State University (NCSU) continued participation in the Internet Data Distribution (IDD) system. This allows access to new data including model simulations, GOES-8, and local sensor input. The upgraded equipment allows access to meteorological information for ongoing research and educational programs.